Regulated Degradation of HMG-CoA Reductase

This is Research Opportunities for Women, Research Planning Grant, to support preliminary studies and other activities related to the development of a research project.